Engineering Research Equipment: Equipment to Upgrade Mechanical Testing Research Facilities

9500254 Baldwin Auxiliary equipment for a tensile testing machine will be purchased with funds partially provided by this grant. The additional equipment will provide new capability for cyclic testing of biological and composite material specimens as well as improved fatigue testing of metal specimens. ***